Ricci Flow, Kaehler-Ricci Flow and Applications

Abstract

Award: DMS-0506084
Principal Investigator: Huai-Dong Cao

The Ricci flow, introduced by Richard Hamilton, has become one of
the most powerful tools in geometric analysis. In the past twenty
years or so, Hamilton has proved many remarkable theorems in the
Ricci flow and developed a remarkable program to approach the
Poincare conjecture and Thurston's geometrization conjecture
using the Ricci flow. More recently, Perelman has made
astounding breakthrough in the Ricci flow with the proof of a
local injectivity radius estimate valid for all dimensions and
used it to study the geometrization of three-manifolds. In
addition to the applications of the Ricci flow to
three-manifolds, many exciting possibilities remain. In this
proposal, we propose to investigate several important problems in
the Ricci flow and the Kaehler-Ricci flow which are of great
interest in geometry, topology, nonlinear partial differential
equations and complex analysis. They include studying
stability/instability of Einstein metrics of positive scalar
curvature (and more generally of shrinking Ricci solitons),
constructing new Ricci solitons, seeking new Einstein metrics via
the Ricci flow, aspects of geometrization of 4-manifolds,
studying the asymptotic behavior of solutions to the
Kaehler-Ricci flow on compact Kaehler manifolds with positive
first Chern class, and the uniformization of complete noncompact
Kaehler manifolds of positive curvature.

The Ricci flow is an important type of geometric flows (or
geometric evolution equations) which have profound importance and
applications in science and geometry. Examples of applications of
other include the motion of a surface by its mean curvature, the
flow of gas in a porous mechanism, the motion of a liquid
crystal, the diffusion of oil in shale, the reproduction of
sparse species, and image sharpening.